The Structure of the Broad-Line Region in Active Galactic Nuclei

The variability of the broad emission lines in the spectra of active galactic nuclei reveals fundamental information about the structure and kinematics of the line-emitting region and about the nature of the central source that cannot be obtained in any other way. This program determines the structure and kinematics of the broad-line emitting regions in active galactic nuclei through repeated observations of a limited number of sources. We greatly improve the temporal resolution of our on-going monitoring project by making use of a Remote Observing Facility which has been developed for use with the Perkins 1.8 m telescope. Furthermore, the quality of the individual observations will be greatly improved through the use of a new CCD spectrograph. The CCD spectrograph is interfaced to the telescope with a fiber- optic feed which enables us to use the spectrograph for partial nights without a complete change of instrumentation at the Casse- grain focus of the telescope. This allows us to observe a few selected sources frequently with minimal impact on other scien- tific programs.